Missouri River Water Quality Network

The Canyon Ferry Limnological Institute, Montana Office of Public Instruction, and Montana State University will offer a four week summer training workshop in aquatic ecology for teachers that reside along the Missouri River. This project will introduce teachers to the process of scientific investigation through a multi-year limnological study of the Missouri River. A network of over 100 teachers along the Missouri River from Montana to St. Louis will be developed and will involve their approximately 10,000 students per year in simultaneous sampling and assessment of the Missouri River's water quality. Over the three year funding, July 1, 1992 - June 30, 1995, approximately 150 teachers and 50,000 students will participate in the project. There will be an approximate cost-share of 32%.